Microanalysis of Oxygen Isotope Ratios in Zircon

9902973
Valley
This study will employ oxygen isotope ratios (d18-O) in igneous
rocks as a monitor of otherwise unobservable processes in the deep crust
and upper mantle. Because oxygen is the dominant element in the crust and
mantle, and its isotopes are stable, large differences from the average
mantle d18-O value are only formed during low temperature processes near
the surface of the Earth. When such highly fractionated rocks are deeply
buried or subducted, their distinctive d18-O is readily recognized if they
become involved in the genesis or contamination of magmas. In the past,
such studies have been hindered by post-magmatic alteration, but recently
developed technology permits analysis of the refractory mineral zircon
which is resistant to alteration. Analysis of previously age-dated (U-Pb)
zircons will be made at high analytical precision by laser and in situ by
ion microprobe. Zircon samples will include the oldest known samples of the
Earth, mantle megacrysts from kimberlite, and tectonically well constrained
rocks from the western U.S. Major goals include: correlation of d18-O with
age which monitors the maturation of the crust through time, and mapping of
anomalous regions of surface-derived rocks buried in the upper mantle and
deep crust. Other aspects of this study will further develop the use of
oxygen isotope ratios in zircon as a powerful new tool for petrologic and
tectonic studies.